Precision Measurements with Polarized Cold Neutron Beams and 3He

The neutron is a sub--atomic particle that
comprises more than half of the matter in the
world. Within the nuclei of most atoms, the
neutron remains stable, but when freed from the
nucleus, it is unstable. Free neutrons are thus
an important tool for study of
sub--atomic physics, because the decay and
interactions of free neutrons reveal the
interactions of its constituents and decay
products. Neutrons also have spin, the quantum
mechanical property of the most fundamental
pieces of matter that distinguishes two states called
spin--up and spin--down. Spin is responsible
for the nuclear magnetism exploited, for example,
in NMR and MRI. The spin states also affect the
decay and interactions of neutrons, and so the
control of neutron spin becomes useful for more
detailed study of sub--atomic interactions. In
the proposed research, free neutrons produced by
a particle accelerator at Los Alamos National
Laboratory and at the nuclear reactor at NIST
will be used in experiments that control the
neutron spin to reveal weak interactions and
possible new physics beyond the Standard Model that
summarizes known elementary
particle interactions.

The neutron spins in a beam of neutron will be manipulated by
selecting predominantly one spin state with a
spin filter based on laser polarized $^3$He. The
neutron spin can be reversed using
magnetic fields that couple to the nuclear
magnetic moment. Very precise measurement of the
neutron polarization ({\it i.e.} the excess
fraction of the selected spin state) and precise
spin reversal are required to mitigate false
effects that may arise. The techniques of
$^3$He polarization, the spin filter, and spin
flipping will be greatly improved as we undertake
these experiments.

The objective of the Los Alamos experiment is
measurement of the weak interaction effects on
the absorption of neutrons by hydrogen. The weak
interaction
is characterized by absorption and emission of
particles that have a handedness that correlates
the spin orientation with the direction of motion.
This handedness allows observation of the weak
interaction amidst the much stronger interactions
of neutrons and protons. Definitive characterization of the weak
interaction between the neutron and proton is
crucial to fully understanding the forces that
bind the nucleus. The experiment at NIST measures
the dependence of neutron decays on the spin
state. In a dedicated detector, neutron decays
are observed by simultaneously detecting the proton and
electron. The
third particle emitted, the neutrino, is too elusive to
detect with high efficiency. A dependence of
the electron's and proton's relative motion on the neutron spin
state would reveal interactions that are not
symmetric under reversal of time, a special
signature that could reveal new physics beyond
the Standard Model, physics that may
explain the origin of matter in the Big Bang. The advanced
techniques of spin state selection, precision
polarimetry, and spin flipping will be applied to
a planned experiment with the objective of precisely
measuring the handedness of neutron decays. When
combined with other neutron decay measurements
these measurements will also probe physics beyond the
Standard Model.

This work probes deep intellectual questions
about the most fundamental
pieces of matter. The aim is to collect data
that will help complete the picture of elementary
particles and their interactions. The techniques
have much broader impact. Laser polarized
$^3$He and $^{129}$Xe used in related experiments
are now used in biomedical research, materials
science, and may be applied in advances of
quantum computation. This research is a remarkable
training ground for undergraduate and graduate
students. The technical challenges combined with
the deep intellectual issues provide motivation
and develop technical skills. Several undergraduates will
gain research experience working along with graduate students and
senior researchers. Graduate students emerge
broadly capable and move on to prepare for
faculty positions as well as interdisciplinary
research. This work has also led to development
of new courses for non--physics majors and to a
set of public lectures on Nuclear Magnets.
The theme for the public is
that, in the context of probing fundamental
problems of physics -- exciting in their own
right, the hardest problems produce the most
innovative solutions with spin--offs unimaginable
at the outset. Atomic clocks, enhanced MRI, and
probing the origin of matter all follow from the
control of nuclear magnetism.